CIF21 DIBBs: Integrating Geospatial Capabilities into HUBzero

This project will develop geospatial data analysis building blocks as core part of the HUBzero Scientific Collaboration platform to enable researchers and educators to create and share geospatial data sets and modeling tools. The project will build upon geospatial capabilities that have been developed by IT experts and validated by the science community and bring such capabilities to the masses, hence any domain scientist can develop and deploy geospatial applications with graphical user interfaces on the web. The deliverables include (1) tools and web service interfaces of "data space" for managing and sharing data, including geospatial data, and (2) Extended RAPPTURE Toolkit APIs to support geospatial mapping, image processing, visualization, and access to shared data in the data space. The building blocks software developed in this project will be open source as part of the HUBzero open source releases.